POWRE: Large Eddy Simulations of Rotating, Turbulent Convection Using the Subgrid Scale Estimation Model

Abstract
CTS-0075076
Kimmel, Lehigh University

Rotating convection, in which buoyant and non-inertial forces govern the resulting motion, are of importance in geophysical as well as some technological flows. The computational description of these flows represents a significant challenge and the developing techniques of Large Eddy Simulation (LES) provide a logical method of approach. The PI will use one of the advanced subgrid models: the "estimation model", to attack this complex fluid dynamics problem. The success/failure of these computations will be instructive in evaluating the efficacy of the estimation model.